Industrial Controls Laboratory and Course in Manufacturing Engineering Technology

An industrial controls laboratory is developed in the Computer Integrated Manufacturing (CIM) Center to support a course in industrial control systems for the CIM curriculum of the Southern New Jersey CIM Consortium (6 county colleges in addition to NJIT). This laboratory also supports a similar non-credit short course for manufacturers and a professional development course for educators. The emphasis is on Programmable Logic Controller (PLC) programming and applications to industrial controls. Class notes and laboratory experiments are developed and made available to the engineering technology community.